SGER: Natural and Artificial Radionuclides as Tracers of Particle Cycling and Circulation Time Scales in the Arctic Ocean

9408945 Moran This Small Grants for Exploratory Research (SGER) project involves an opportunistic collaboration between U.S. and Canadian investigators who will conduct a study of a suite of natural and artificial radionuclides during the 1994 U.S./Canada Arctic Ocean Section (AOS). The AOS is under the auspices of the Arctic Systems Science (ARCSS) Global Change Research Program. The AOS is a collaborative research effort with Canada that will involve approximately 60 scientists on a Canadian and a U.S. icebreaker during a 55-day cruise in the summer of 1994. This project will measure Thorium isotopes in seawater to quantify upper ocean particulate organic C and N export fluxes and deep ocean particle cycling. In-situ pumps will be used to collect dissolved and particulate samples for determination of radionuclides in the surface and deep waters. Collection of these data within the framework of other multidisciplinary efforts will lead to a better understanding of organic C and N cycling, particle dynamics and circulation time scales in the Arctic Ocean, and will contribute to the emerging global efforts to better understand the role of the Arctic Ocean in global climate change.